CAREER:Studies of Decision Making in Complex, Dynamic Environments

This research focuses on understanding, modeling, and supporting human decision making in complex
situations such as manufacturing, aviation, process control, military and non-military command and
control and transportation. These situations are challenging, and can lead to potential problems and
human errors, because they are often rapidly changing, have uncertain and risky elements, and require
quick responses. To study these,issues, the project includes the development of interactive computer
simulations to allow experiments in which participants will make decisions in complex environments
such as process control or transportation. Planned experiments include investigating how people cope
with uncertain information when making decisions, identifying appropriate types of performance
information which may help people learn to make better decisions, and developing display formats and
visualizations to help people better understand uncertainty and how it may affect their decisions.
Research results will be relevant for the development of computer displays, decision-aids, and
training recommendations which can lead to improved decision-making performance. The project includes
educational components which are integrated with the research plan through the utilization of the
experimental simulations in course exercises and projects, through undergraduate and graduate student
involvement in the ongoing research, and through the incorporation of research results into course
materials.